Up-grading of Instrumentation Lab for High-Speed Digital andHigh-Frequency RF

The aim of this project is to provide laboratory instruments needed for undergraduate electrical engineering students to work with state-of-the-art circuits and electronic devices; applications of these high-speed circuits and devices include communications, computers, consumer products, instrumentation, and digital signal processing systems. Existing instruments are limited to frequency ranges inadequate to permit laboratory teaching to cover currently available components and circuits. Major items being acquired include high-performance data and signal generators, high-sample rate digital scopes, RF impedance measurement system, data analyzer, and high-frequency vector volt meters.Communications, signal processing, microprocessor applications, instrumentation, and consumer electronics equipment now operate at frequencies formerly encountered only in radio transmission. This project will provide students with laboratory experience in these growing areas appropriate to prepare them for professional work in industry or for further study in graduate school.